Statistics for Action

TERC is partnering with the Toxics Action Center to enhance the capacity of environmental organizations to teach mathematical literacy skills to low-income citizens, mostly women of color. Secondary collaborators include four environmental organizations around the country. The project is (1) developing math- and statistics-rich educational materials that help non-scientists interpret environmental test results, (2) developing training materials that help environmental organization personnel provide quantitative literacy training to citizens, (3) helping environmental organizations institutionalize project resources, and (4) evaluating the impact of project activities on environmental organizers, community members, and the general public. Project deliverables include bilingual, print- and web-based instructional materials (including videos) for environmental organizations to use with staff and community members; training sessions to create a cadre of environmental organization leaders who can conduct environment-focused, math training workshops; a communications toolkit for dissemination to journalists who cover environmental issues; and a resource-rich project web site.